Acquisition of a Clustered Workstation Computing Environment for Advancing Research and Education in the Atmospheric and Oceanic Sciences using General Circulation Models

0079196
Majda
This Major Research Instrumentation award to Courant Institute of New York University provides a clustered workstation environment for research and education related to evaluation and testing of General Circulation Models, and their application to climate problems. The computer system will be part of a new program in Atmosphere-Ocean Sciences at the institute. The project is supported by the Division of Ocean Sciences at NSF. New York University will provide cost-share support for 30% of total project costs.
***